Transitions and Defects in Ordered Materials: Nonlinear Theory, Computation, and Equipment

This research is concerned with the development and analysis of nonlinear constitutive theory, with the development and implementation of computational methods, and with experimentation in materials exemplified by phase phenomena that occur especially in liquid crystals and crystalline solids.